Oceanographic Instrumentation

9610008 Findley This award to University of Miami will provide new instrumentation to be used on research vessels operated by University of Miami (R/V Calanus) and Harbor Branch Oceanographic Institution (R/V Seward Johnson and R/V Edwin Link). Instrumentation includes water sampling bottles, conductivity-temperature-depth (CTD) instrumentation and related sensors, shipboard computer LAN components, a subbottom profiling sonar system and replacement sensors for a MOCNESS sampling system. University of Miami provides the technical support on HBOI research vessels, and all three vessels are operated as part of the University National Oceanographic Laboratory System (UNOLS), available for use by academic researchers throughout the U.S. The shared-use instrumentation supported here will assist researchers to conduct studies of the Atlantic Ocean, the Caribbean Sea and the Gulf of Mexico in 1997 and in future years. ***